GnRH and GTH in Agnathans

This is a Research Opportunities for Women Career Advancement Award. Dr. Sower will spend a sabbatical year working with a new species which has the advantage of being available on a year round basis, to test the hypothesis that lampreys have a hypothalamo-hypophysial-gonadal axis.